Doctoral Dissertation Research in Sociology

This dissertation research examines differences in the ranking of graduate programs of study in American universities across disciplines and over a period time (1964-1981). The goal is to determine the significance of organizational factors, within departments and within universities, in promoting the effectiveness of doctoral programs. Effectiveness is gauged by faculty ratings of these programs. Both stability and change in the ranking of doctoral programs will be examined, using existing faculty rankings from 1964, 1969, and 1981. Similarities and differences in factors affecting the ranking of graduate programs in the natural and social sciences will also be investigated. The project will contribute to an understanding of trends in higher education in the United States and the role of organizational factors in promoting quality education.